Collaborative Research Using High Mass Binaries to Resolve the Mass Discrepancy: Taking Things to the Extreme

AST-0506577
Philip Massey
Lowell Observatory
Collaborative Research Using High Mass Binaries to Resolve the Mass
Discrepancy: Taking Things to the Extreme
ABSTRACT
An observational program will be undertaken to determine the masses of the most massive stars.
The work is motivated by significant (factors of two to three) differences in the masses of high mass
stars derived from evolutionary models compared with those calculated from atmospheric
parameters (i.e, surface gravities from Balmer profiles combined with distance, reddening, and
bolometric magnitudes). Thus, either problems remain with theories of high mass star evolution
(important/unknown physical complications may have not be included), or with the spectroscopic
approach (incorrect surface gravities, luminosities, distances, etc. may be being used). To resolve
the question and ascertain the source of the discrepancy, the masses of binary O stars will be
directly measured from an analysis of eclipsing double-lined spectroscopic binaries (special
attention will be paid to those with periods > 3-5 days which have therefore not interacted). In the
first year, young associations and clusters in the Milky Way and Magellanic Clouds will be
photometrically surveyed to find eclipsing binaries. Radial velocities for candidates will be obtained
in the second year. The third year will be used to find the orbit solutions, and to calculate
spectroscopic and evolutionary masses for comparison with the results.
This project includes a significant outreach and undergraduate research component. The
photometric data (its acquisition for the northern fields and reduction for both northern and southern
targets) will be part of a key project of the National Undergraduate Research Observatory.
Undergraduate students in Northern Arizona University Research Experiences for Undergraduates
program and MIT field camp will help with the spectroscopic observations and orbit solutions.